Dissemination of Results From NSF-Supported Engineering Education Projects

9452911 Huband The American Society for Engineering Education (ASEE) will publish the results of NSF/DUE-sponsored research and innovation in engineering education in ASEE's Journal of Engineering Education, The Institute of Electrical and Electronics Engineers' (IEEE) journal Transactions on Education, and other appropriate learned journals. In keeping with the scholarly spirit of these journals, funding from NSF will assure valuable dissemination of the results of NSF-funded research. Thus, findings from NSF-funded research by principal investigators in the field of engineering education would be assured of the broadest possible dissemination in scholarly journals dedicated to expanding the body of knowledge that supports engineering educators nation wide.